Enhancing Computerized Cartographic Instruction in an Undergraduate Geography Program

This project establishes a capability in computer assisted cartography in the Geography program. Computer assisted cartographic techniques and processes are an integral part of several undergraduate geography courses, significantly enhancing the level of learning among both geography majors and other students who look to Geography as a corollary science to their major discipline. In addition to integration of the equipment into four technique courses,computer assisted cartography is introduced as a discrete learning unit into the entire array of geography courses, thus serving a wide audience from the entire University. The goal is to provide students with an opportunity for hands-on experience with computer assisted cartographic techniques and to allow them to participate in the expanded geographic analytic processes associated with these techniques. The award will be matched by an equal amount from the grantee.